Mathematical Sciences: Conference on Arithmetic Geometry with Emphasis in Iwasawa Theory; Tempe, Arizona; March 1993

The conference, Arithmetic Geometry with an Emphasis in Iwasawa Theory, is to be held at Arizona State University, March 15-18, 1993. This conference has several goals. . Recently, there has been a great deal of activity and many striking advances in arithmetic geometry. Due to the heavy backlog in journals, work frequently does not appear in print for several years after completion. This conference will provide a means for researchers outside of select circles to learn what is currently the state of the art. . The problem of time lag alluded to above is more acute for new conjectures and work in progress. The overwhelming preponderance of journal articles in number theory are for finished work. The conference will provide an arena for researchers to pose new questions to the number theory community, offering interesting ideas for new directions researchers may wish to take. . By bringing people together from across the country and around the world, the conference will facilitate researchers discussing their work with the world's experts, potentially leading to new insights. . Finally, talks which survey a sub specialty can provide direction for researchers looking to enter a new area (especially graduate students). The conference will include a combination of one hour and half hour talks, with no two given simultaneously (so that participants can attend them all). All of the talks will be on the conference theme of arithmetic geometry; some talks will focus on recent results, some on new conjectures, and others will give overviews of sub-disciplines within arithmetic geometry. All lectures and informal discussion periods will take place in space provided by the mathematics department on the Arizona State University campus.